Collaborative Research: TRTech-PGR: Targeted Proximity Labeling of Extracellular Vesicles with Fluorescence and Biotin

Nearly all cellular organisms release tiny membrane-bound particles called extracellular vesicles (EVs) that carry biological information. These EVs can facilitate communication between cells within an organism or between two different organisms. Scientists still lack robust, reliable tools to determine where EVs are released, where they are going, and what they are delivering. This project aims to solve that problem by developing innovative biotechnology tools that snap together only when EVs reach their destination. One tool will fluoresce visibly under a microscope upon arrival at its destination, and the other will enable researchers to characterize or isolate specific subsets of extracellular vesicles for analysis. Researchers in this project will use these tools to study how a major fungal pathogen of crops, Colletotrichum, uses EVs to infect plants, and how, in turn, plants use EVs to combat infections that lead to crop loss. Fungal pathogens are among the leading causes of crop losses worldwide, threatening the global food supply. Furthermore, since nearly all organisms use EVs, the innovative tools developed here can be applied broadly in human health, animal biology, agricultural resilience, and the overall bioeconomy. Through interdisciplinary training in molecular biology, biochemistry, advanced microscopy, and artificial intelligence (AI)-enabled image analysis, the project will train students and early-career researchers in skills relevant to the biotechnology industry. To broaden the impact, the project includes an annual workshop to train other scientists on challenging EV-related techniques and will bring the microscopic world of plant-microbe interactions to the public through tours using inexpensive Foldscope paper microscopes.

This project develops a tool that labels EVs with fluorescent and protein-conjugating tags by reconstituting split proteins on their surfaces. The approach combines two split protein systems. The first splits a fluorescent protein (FP), and the second splits a ligase, which labels nearby proteins. The interaction between the two halves of ligase brings the split FP together, and the irreversible FP beta-barrel that forms locks the ligase fragments in place for efficient labeling. The researchers will place one half of each split system on the surface of EVs, and the other half at locations of interest, including release and uptake destinations or fungal infection sites. Fluorescence enables detection, tracking, and quantification of specific vesicle populations by live-cell microscopy, and biotin labeling enables identification of vesicle surface proteins and interactors by mass spectrometry. The research team will adapt the method to detect, isolate, and characterize the subpopulation of plant EVs released at the plant-fungal pathogen interface of Colletotrichum. Proteomics will reveal enrichment of specific cargoes, and genetic approaches will determine whether they are required for host defense. The resulting biotechnology platform can be used to study EVs in animals, microbes, and other organisms, extending its impact well beyond plant biology.